Highly CO2-Soluble Surfactants for Supercritical Fluid Reaction, Separation & Impregnation Process

The combination of benign environmental impact and tuneable solvent power has led to a variety of extraction/separation applications for supercritical carbon dioxide. Despite these inherent advantages, the low solubility of highly polar or hydrophilic compounds in non-polar CO2 has blocked the use of supercritical fluid technology in areas such as protein purification, the remediation of heavy metal contamination, and non-VOC based coatings formulations, where generation of a highly pure and readily recoverable product would be a significant advance. Recent research by other groups has shown that the formation of micelles in supercritical fluids provides a means by which low solubility of polar compounds in non-polar fluids can be overcome. Despite this advance, formation of stable micelles in CO2 (as opposed to alkanes) has remained elusive, due primarily to the low solubility of commercially-available surfactants in carbon dioxide at moderate pressures. Thus this project proposes to synthesize model amphiphiles where the "hydrophobic" tails contain functional groups, such as fluoroethers and silicones, which are known to interact favorably (in a thermodynamic sense) with carbon dioxide. Preliminary results at the University of Pittsburgh with fluoroalkyl, fluoroether, and silicone materials show that this premise is indeed valid. This project extends these successful preliminaries with a program of rational synthesis of surfactants and phase behavior studies.